The Second International Conference on Hazardous Waste Management

Partial support is provided for a second international conference and workshop for the siting and underground geomechanic research portions of ground disposal of hazardous wastes, to be held in the Fall of l987. The first international conference and workshop was highly successful and resulted in several benchmark decisions on the technical approaches to clarify the siting and subsurface disposal issues for hazardous waste. The meeting resulted in an international transfer of technologies for siting hazardous waste disposal and has helped in the emergence of a new field of research in environmental geotechnology. The second meeting will continue to assess the progress made in this research area.